Formal Groups, Structured Ring Spectra, and Stable Homotopy Theory

Abstract

Award: DMS-0706705
Principal Investigator: Paul G. Goerss

The chromatic picture of stable homotopy uses the algebraic
geometry of formal groups to organize and direct investigations
into the deeper structure of computations and theory. This
project seeks to develop this point of view in two directions,
one local and one global. The first, or local, direction is an
investigation into K(n)-local homotopy theory in general and into
the K(2)-local sphere in particular. The second, or more global,
direction, would be to make systematic our knowledge of
structured ring spectra using stacks and the moduli stack of
formal groups as the basic parameterizing device. In particular,
a main part of the project is to continue work on the problem of
realizing families of commutative ring spectra over the moduli
stack of formal groups. The spectrum of topological modular forms
arises from taking the homotopy inverse limit of just such a
family and recent work of Lurie, Behrens, and Lawson had given
new examples. We can ask for systematic results along these
lines, and we can ask for a thorough investigation into the
examples we have. An intriguing and novel feature of these
families is that they use the theory of Barsotti-Tate groups to
combine information from formal groups of various heights.

This project is in homotopy theory, which is a branch of
topology, a rather modern field that grew naturally out of
geometry by studying phenomena that remain invariant under
continuous transformations, rather than rigid (e.g.,
angle-preserving) transformations. Of particular importance in
topology are the continuous maps between large dimensional
spheres; under a suitable equivalence relation, this is the ring
of stable homotopy groups of spheres. This notorious difficult to
calculate, or even to make conjectures about; therefore, in the
past few decades we have focused on trying to understand
large-scale qualitative phenomena. In summary, this is the main
thrust of this project as well. It has been very fruitful to
detect these phenomena using tools from other fields, especially
algebraic geometry. The transition from topology to geometry is
done using homology theories, which is a way of linearizing
behavior in topology. Simply sticking to one such theory is a
radical process, however, and it loses too much data; therefore,
we study families of such theories. Of particular importance is
the family parametrized by the stack of one-parameter formal Lie
groups. The theory of stacks is vital here, as this allows us to
study symmetries across continuous families of geometric objects
-- especially when the self-symmetries can vary non-continuously
throughout the family, as is most certainly the case here.